Research Experiences for Undergraduates in Chemistry at the University of Arizona

The Research Experience for Undergraduates (REU) Site project is in the area of Materials Chemistry. For a three-year period beginning in 1992, ten undergraduate students will spend ten weeks each summer engaged in research activities, ranging from synthesis of new materials to characterization of their physical and chemical properties. The goal of this program and its unique feature - its concentration on highly-qualified women - will ultimately introduce into graduate programs women who have been directly involved in the creative fusion of Chemistry and Materials Science.